1987 Northeast Regional Conference on Developmental Biology,Marine Biological Laboratory, September 24-27, 1987, Woods Hole, Massachusetts

This proposal is a request for funds to help support the 1987 Northeast Regional Conference on Developmental Biology. The Conference will be held at the Marine Biological Laboratory, Woods Hole, Massachusetts, September 24-27, 1987. The goal of the Conference is to bring together developmental biologists from the Northeast to present their work in formal sessions and informal discussions. A special effort is being made to bring together investigators at all career stages: graduate students to established investigators. The conference will include 5-6 platform sessions, a poster session and a keynote address. The purpose of the conference is to provide an effective opportunity for the formal and informal exchange of information and ideas between established investigators and graduate or postdoctoral students. This goal is achieved much more readily at the regional conferences than at national meetings primarily because the regional conferences are smaller, less rigidly scheduled, and allow ample time and occasion for discussions.